Weather: Sensing, Analyzing, and Forecasting

The State University of New York College at Brockport, in cooperation with the U.S. National Weather Service, will conduct an Undergraduate Faculty Enhancement Workshop for Teachers of Introductory Courses with Weather Content. The two week workshop will be held July 25 - August 5, 1988, at the National Weather Service Training Center in Kansas City, Missouri, for 25 selected undergraduate college instructors of weather-related introductory courses. The major purposes of the workshop are (a) to bring participants up-to-date on those technologies and techniques used in meteorology to detect, analyze, and forecast weather, and (b) to equip and encourage these teachers to use the latest in telecommunicated weather information and instructional materials in their classrooms. In addition to the NSF funds, participants' institutions will contribute about 15% in travel costs to the operation of the project.